REG: Infrared Laser, TV Camera and Fabry Perot for MM-Wave Modulator Research

This NSF Engineering Research Equipment Grant will enable the purchase of a Neodymium-YAG infrared laser, an infrared TV camera, and an infrared scanning Fabry Perot optical spectrum analyzer for novel electro-optical modulator research at Caltech. A serious difficulty in extending the operation of travelling-wave electro-optical modulators into the 100 GHz (3mm) region is caused by dispersion in the modulator material, crystalline lithium niobate. The optical wave travels through the crystal much faster than the modulation wave; as a consequence, the modulation process gets out of step at these high frequencies. A technique being studied at Caltech breaks the modulation transmission line into a number of short segments, and drives each segment from its own tiny dipole antenna integrated on the surface of the crystal. The antennas are excited by a plane wave radiated from a waveguide, incident at just the correct angle to keep the modulating wave in step with the optical wave on the average. As a bonus, using antennas and radiation rather than coax connectors and bond wires to couple the modulation to the transmission lines eliminates parasitic electrical elements that would be very detrimental in the mm- wave range. Modulation frequencies as high as 63 GHz (4.8 m) have been used with an 18 mm long lithium niobate modulator with good efficiency. These initial experiments employed red laser light at 633 nm. Practical fiber optical systems that use such modulators for information transmission (telephone, CATV, radar signals, etc.) all operate at 1320 or 1550 nm, however. This grant will allow the extension of this wave-coupled modulator research to those wavelengths.